The role and effects of College-Employer Partnerships on Science Education in Two-Year Colleges

Koltai 9355755 This is proposal to study business-community college partnerships for workforce training. The porposer seeks to study the academic benefits of such alliances for two-year institutions and the science and mathematics curriculm.